Research Experiences for Undergraduates in Chemistry at the University of Utah

This Research Experiences for Undergraduates (REU) Site project is for research activities in all the subfields (organic, physical, analytical, inorganic, and biochemistry) of chemistry. During the summer of 1992, twelve undergraduate students will spend ten weeks engaged in research under the supervision of their faculty, graduate student, or postdoctoral fellow advisors. A unique feature in this REU activity is use of a graduate student or postdocoral fellow as a "peer" mentor to help the student get started in the laboratory.